Cis-acting Sequences and Initiation of Mammalian DNA Replication

9317011 Burhans Cis-acting sequences that promote initiation of DNA replicaton reside within a 14 kb fragment of DNA derived from a broad region where multiple initiation events occur downstream of the hamster dihydrofolate reductase gene locus. The specific aim of this project is to determine the precise sequence requirements for initiation in this locus by analyzing the ability of various permutations of cloned sequences from this fragment to promote initiation of DNA replication after the cloned sequences have been integrated into the hamster genome. To analyze these sequences independently of position effects, they will be targed to a single locus of the hamster genome by the bacteriophage P1 Cre recombination system. Origin activity will be measured by application of several newly developed techniques that are capable of detecting origin function in chromosomes containing single copies of origin sequences. Information provided by this study should further our understanding of how cis-acting sequences function in initiation of DNA replication in mammalian cells. %%% A fundamental prerequisite to cellular reproduction is the precise replication of the genetic information encoded in cellular DNA molecules. Replication of these molecules begins at specific locations of the chromosome which are apparently determined by sequence information at these locations. This project will determine what sequence information is required for initiating DNA synthesis in a particular region of the hamster genome where initiation of DNA replication has been observed to occur. Determining what these sequences are will allow us to address the question of how they work, and of how initiation of DNA replication is coupled to regulation of cell proliferation. ***